A Multi-Agent Approach to Feeder Reconfiguration

ECS-9629273 Ramesh As competition in the power industry intensifies, distribution automation is sure to become increasingly attractive both from the economic and from the security point of view. Feeder reconfiguration for transformer and feeder load balancing is an effective control action both for avoiding outages and for faster restoration. Load balancing is particularly important today since many of these devices (transformers and feeders) have been in service for many decades, in most cases. Replacement or even reinforcement of these aging facilities is difficult due to the emphasis on cost reduction due to competition. Load balancing will help minimize failures of these devices thereby preventing outages. Feeder reconfiguration is a combinatorial optimization problem with multiple conflicting objectives and nonlinear constraints. Not surprisingly, it continues to be an active research area since many local optima exist and the aim is to find the globally optimal Pareto surface that reflects the tradeoff between the objectives. So, we are not just looking for one global optimum (which itself would be difficult to obtain efficiently), but we are looking for many such solutions that form the Pareto surface. Many solution approaches have been suggested, but none appears to be totally up to the task. Heuristics are inevitable; the question is: which ones? Our proposed approach is based on this observation: multiple heuristics and algorithms working together (in parallel) might be more effective than any one of them working in isolation. We call each individual algorithm/heuristic, an agent. In this context, the term agent refers to the ability of the individual algorithms to "cooperate" with each other, enabling a synergistic enhancement of their isolated capabilities. Such an approach has proved useful for other combinatorial optimization problems, including some in the power systems area, and hence, there is reason to believe that it will be successful for feeder reconfiguration as well. We propose to demonstrate that our multi-agent approach is able to obtain the Pareto set of optimal solutions for this problem with a computational effort acceptable for online operational planning purposes (if not real-time). We also propose to develop a theoretical framework, based on Markov chains, for analyzing the computational behavior of our multi-agent approach with a view towards providing insights into its performance, its scalability to large distribution systems, and its applicability to similar combinatorial problems in power systems. Three results are of particular interest: 1) the "convergence" of the solutions in the memory towards the global optimum as time progresses; 2) the decrease in the value of the most important objective towards the global optimum as agents are added one by one, 3) the "speedup" (decrease in overall execution time) obtained as more processors are added (we expect a near-linear speedup). Finding the optimal feeder reconfiguration strategy is a multi-objective combinatorial optimization problem that is difficult to solve in the online environment. The proposed multi-agent approach has the potential of offering an effective way of combining, various heuristics in a synergistic fashion so as to obtain the Pareto surface for the conflicting objectives. By improving both the overall solution quality and the computational time, the approach will significantly advance the state-of-the-art in feeder reconfiguration research and practice. Further, since the approach is inherently parallel, it can take maximal advantage of the distributed computing platforms that are becoming commonplace in distribution control centers. The applicability of the multi-agent approach and of the Markov chain model extend beyond the feeder reconfiguration problem. The utility of similar approaches to a couple of other power system problems has been reported in the literature. This proposed research will lay the foundations for a theoretical and an experimental framework for answering the important question: Given that there are various algorithms and heuristics for solving this difficult problem, what is the best approach for combining them such as to extract a better performance than any of them is capable of, in isolation? Answering this question successfully has fundamental value for advancing the practice of solving combinatorial problems in the power industry. ***